CEDAR: Continue Upgrading the Facilities of the Jicamarca Radio Observatory

This proposal requests funds as part of the CEDAR initiative for capital equipment for Jicamarca Radio Observatory in order to continue the upgrading of the main incoherent scatter radar transmitter. Also this proposal requests funding for the parts to finish the work on the third and fourth driver stages for the transmitter and to buy the high power tube for the third final stage.***//